Fragmentation of Isovector Quadrupole Vibrations in N=84 and Z=52 Nuclei

The proposed research investigates manifestations of the neutron-quadrupole proton-quadrupole vibrational mode in the spherical nuclei 142Ce, 144Nd, and 120Te. Experiments will be performed at the University of Kentucky Nuclear Structure Laboratory and examine y-ray emission following inelastic neutron scattering on the nuclei of interest. A three-year research program involving nuclear scientists from the U. S. Naval Academy, the University of Dallas and the University of Kentucky is proposed. This proposal is designed to include active participation by undergraduate students, in the research effort.